CISE Research Resources: Programming Environments and Applications for Clusters and Grids

EIA- 0224453
Adve, Sarita V.
Hwu, Wen-mei;
Kale, Laxmicant V.;
Padua, David A.;
Patel, Sanjay J.
University of Illinois - Urbana/Champaign

CISE RR: Programming Environments and Applications for Clusters and Grids

This proposal, building a cluster platform connected by gigabit Ethernet, enables the "grid" to be used in the following four research projects:

Advanced Programming Environments for Cluster and Grids,
Parallel Applications for Clusters and Grids,
Dynamic Sequential Code Optimization, and

Architectures for Multimedia and Communications Applications.

The configuration permits experimentation on diverse subsystems with varying degrees of heterogeneity, up to three levels of parallelism, and a range of system sizes. The facility will be used in three ways: as an experimental test-bed for systems research on clusters and grids; as a prototype for the development of parallel and distributed applications for clusters and grids; and as a cost-effective production compute server for research in architecture, compilers, and machine learning. The shared facility addresses problems critical to computational infrastructure spanning architecture, compiler, and runtime research on systems ranging from single nodes to grids, covering various application domains.